FDA SIR: Compositional Approaches to Safety and Risk Management for Medical Application Platforms

Modern medical devices increasingly incorporate connectivity mechanisms that offer the potential
to integrate devices via network/middleware technology into larger systems of cooperating
devices. Initial integration efforts in the industry are focused on streaming device data
into electronic health records and integrating information from multiple devices into single
customizable displays. This proposal provides a research foundation for engineering and verification
of these safety critical systems through creating an open source Medical Device Coordination
Framework (MDCF) which includes: 1)middleware for integrating medical devices and electronic health
records, and 2) a model-based development environment that implements medical device coordination
applications (apps for short), enabling a systems of systems paradigm for medical devices.

The project has substantial broader impact via tools and techniques for verifying the integration of
medical systems that are compatible with the Integrated Clinical Environment standard. In addition,
the proposer includes extensive interaction with FDA specialists who are looking to transition these
methods into their validation and verification processes for their regulatory mission.